Two-Dimensional Polymerizations in Supramolecular Assemblies

Supramolecular assemblies, such as monolayers, vesicles, bilayers, and tubules, are two-dimensional arrays of amphiphiles. The recent introduction of methods to polymerize these assemblies provides a means to modify their chemical and physical properties. The nature of these two-dimensional polymerizations and the effect of the assembly structure on the polymerization reaction are poorly understood. The objective of this research is to enhance the understanding of the fundamentals of two-dimensional polymerizations. Specifically, this initial research will emphasize the following: a) the factors that control the size of linear polymers formed from assemblies of homolipid assemblies; b) the rate of two- dimensional polymerization in homo- and mixed-lipid assemblies; and c) evaluation of the effect of the frequency of crosslinks in the polymerization of the assemblies on both the rate of lipid diffusion, and the solvent stability of the polymerized assembly. These data, to be determined primarily for extended bilayer, cast bilayer, and vesicle assemblies, are expected to provide a basis to evaluate how two-dimensional polymerizations parallel or deviate from the established principles of isotropic polymerizations. Consequently, they will provide a basis for the use of two-dimensional polymerizations for the formation of new materials.